Single Ion Channels From Teleost Osmoregulatory Tissues

The intestine and urinary bladder of vertebrate animals serve an important barrier function controlling the movement of nutrients, salts and water into and out of the organism. The major objective of the proposed project is to determine the specific mechanisms by which such substances pass across these tissues and the pathways for control of these processes. The individual membrane proteins which mediate the movement of ions, specifically, can be studied in their ensemble behavior using conventional electrophysiological techniques (and the results related to the overall macroscopoic functioning of the tissue in homeostatic balance of the animal) or studied individually using patch clamp technique (and the results related to the biophysics of membrane ion channel function). These techniques will be applied to delineate the roles of hormones and drugs in altering membrane transport and to increase understanding of the role(s) of these tissues in salt and water balance. //